Workshop on QED Structure Functions; Ann Arbor, Michigan; May 22-25, 1989

A workshop on Quantum Electrodynamic Structure Functions is being held at the University of Michigan. This Workshop will deal with problems whose solution is crucial to our being able to interpret experimental data on electron-positron collisions. One of these problems is the precise shape and width of the Z resonance in these collisions, and the relation of these properties to the character of the weak interaction, and to the number of neutrinos. The Workshop will also deal with related problems whose solution is basic to our ability to utilize data on electron - proton collisions.